Infrared Properties of Fly Ash and the Correlation of Calculated and Measured Radiative Properties of Fly Ash Dispersions

In pulverized coal combustion systems and in coal gasification systems, radiation is the dominant mode of head transfer both in the combustor and in the reactor, as well as in the boiler into which the combustion of reaction products flows. The calculation of radiative heat transfer in such systems requires a detailed knowledge of the so-called optical properties. The research program will generate such basic data and will generalize the data to predict the radiative properities of coal ashes as a function of composition, oxidation state, wavelength, and temperature.